Building Multimedia Pre-calculus

9705623 Confrey Quest Mulitmedia Math and Science, Inc. of Ithaca, NY is developing a complete precalculus course to be delivered initially on CD-ROM in a Netscape container. The product has an emphasis on problem solving and modeling using families of functions and transformations. Computer-based quantitative tools and a rich set of interactive diagrams are available and complement the product's use of multimedia resources, including text, graphics, video, photographs, animations, and sound. The product is derived from precalculus materials which have been tested and used with secondary school and undergraduate students as well as preservice and inservice secondary teachers.